An REU Site in Stellar Astronomy at Indiana University

AST-0139617
Honeycutt

Dr. Honeycutt is awarded funds to establish a Research Experiences for Undergraduates site in astronomy at Indiana University in Bloomington, Indiana. The site will host six students per year for three years. Recruitment will target students from small colleges and state universities without astronomy Ph.D. programs. The focus of the student projects will be observational stellar astronomy using ground-based photometric and spectroscopic data. The students will be organized into three research groups in the areas of variable stars, open cluster color-magnitude diagrams, and high dispersion spectroscopy. Student activities will include a week-long trip to Kitt Peak to use the 0.91-m WIYN (Wisconsin-Indiana-Yale-NOAO) telescope, an internal research symposium in the final week of the program, and the preparation of abstracts and posters for presentation at a professional meeting.